Contemporary Tlingit Family, Kinship, and Marriage: The Impact of Change

9402724 BARSNESS The goals of this dissertation project are to analyze the nature of social and culture change, and the conditions that constrain and promote these changes. The study, based on ethnographic and archival analysis, focuses on alterations that have occurred during the past 50 years in the Tlingit village of Hoonah, Alaska. It is proposed that these changes were the results of events beyond village control as well as deliberate decisions by village leaders. Furthermore, it is suggested that social change may be deliberately created by members of a society as a means to generate political power. The project will fill a major gap in our knowledge of contemporary Native American social organization and contribute to anthropological knowledge of cultural transformation. ***